MRI Consortium: Acquisition of X-Ray Scattering Instrumentation - SAXS/WAXS/GISAXS

The small angle X-ray scattering (SAXS) facility at Duke University will be the first X-ray scattering instrument in the Research Triangle area of North Carolina. It will therefore serve a multidisciplinary community of researchers and provide the opportunity, for the first time, to train students in advanced scattering techniques.

The SAXS facility at Duke University's Shared Materials Instrumentation Facility (SMIF) will serve three major universities in the area: Duke University, North Carolina State University, and University of North Carolina at Chapel Hill. It will also be available to two historically black universities, North Carolina A&T State University, and North Carolina Central University, that currently utilize instrumentation at SMIF. The instrument will serve researchers in materials science, structural biology, polymer and colloidal chemistry, chemical and biomedical engineering, and textiles engineering. The instrument capabilities will be broad to address the different needs of the users, and include wide angle X-ray scattering (WAXS) and grazing incidence small angle X-ray scattering (GISAXS).